Variational Analysis and Dynamic Optimization

VARIATIONAL ANALYSIS AND DYNAMIC OPTIMIZATION
DMS 0072598

ABSTRACT:

The aim of this proposal is to make an essential
contribution to the mathematical progress of
three classes of such problems by actually
producing different optimality criteria and
furnishing stability analysis results. The three
classes are under three main headings: the
generalized problem of Bolza, the continuous-time
optimal control, and the discrete-time optimal
control. The first class, the generalized problem of
Bolza, falls in the heart of nonsmooth analysis where
the regularity of the integrand is lacking but
compensated for by the relative regularity of its
Hamiltonian. Despite the fact that under certain
hypotheses the second class can be viewed as a
subclass of the first, it is quite beneficial to
study this class directly on its own to obtain results
that take into account the special and rich structure
of the problem. This direction of research produces
for the optimal control problems, results that are, in
general, distinct from those obtained by applying the
results of the generalized problem of Bolza. Furthermore,
these two sets of results hold for the optimal control
setting under different sets of hypotheses. The third
class of problems is important for numerically solving the
continuous-time optimal control problem via discretization.
For the three classes, second-order necessary and
sufficient conditions would be derived in terms of a
quadratical functional, conjugate point theory, and
a Riccati equation. Furthermore, results on the stability
and sensitivity of solutions to perturbations would be
investigated. The Hamilton-Jacobi theory would be
employed, as well as the latest techniques from
variational and nonsmooth analysis.

Optimization problems with dynamical structure have become
prominent in a variety of disciplines as mathematical
models of systems with time evolution. In particular,
optimal control theory is a subject that was developed in
the 1950's mainly to deal with applications arising from
several disciplines. This includes engineering, operations
management and economics. Most problem formulation were
initially derived from engineering considerations which
lead to the presence of control and state constraints. This
is the case with the "soft moon landing problem" and
the "rocket car problem". Most recently, the formulation
of the optimal control problem has been adapted to include
considerations from other areas like management and
economics. This accounts for the increased interest in
optimal control problems with constraints containing both
the state and the control variable. Therefore, providing
new tools and better techniques to tackle these problems
and to help in computing their solutions would have an
important impact on the applications emanating from
those disciplines. This is exactly the goal of the present
proposal. In fact, the intent is to derive optimality
criteria for control problems with different types of
constraints. Furthermore, the stability of these criteria
under small perturbations is analysed. This latter is
crucial for applications, due to the error in measurements.